RUI: Differential Geometry of Submanifolds

Abstract

Award: DMS-0405529
Principal Investigator: Thomas E. Cecil

The goal of this proposal is to study submanifolds of Euclidean
space and the unit sphere which have special curvature
properties. Of particular interest are isoparametric
hypersurfaces, which have constant principal curvatures, and
Dupin hypersurfaces, which have the property that each principal
curvature is constant along each of its curvature surfaces.
Although these important classes of hypersurfaces have been
studied since the nineteenth century, many natural problems
remain open at this time. The principal investigator and his
collaborators, Quo-Shin Chi and Gary Jensen of Washington
University, will employ the method of moving frames on Legendre
submanifolds in Lie sphere geometry in their research on these
problems. This method is applicable to the study of any
submanifold in Euclidean space, not just to those mentioned here,
and it has been used successfully by the principal investigator
and his collaborators in previous research.

Dupin hypersurfaces have been studied extensively since the
introduction of the cyclides of Dupin in 1822, and great progress
has been made over the past 25 years in their classification.
Dupin hypersurfaces have played a major role in various
mathematical theories, such as the theory of taut embeddings, the
study of Hamiltonian systems of hydrodynamic type, and the theory
of higher-dimensional Laplace invariants. The cyclides of Dupin
have also apperared in recent papers on computer aided geometric
design. The study of isoparametric hypersurfaces in spheres was
initiated by the renowned French mathematician, Elie Cartan, in
the 1930's, and many mathematicians have made significant
contributions to this beautiful theory. Included in the class of
isoparametric hypersurfaces and their focal sets are many famous
geometric objects, such as the Veronese surface and the
Clifford-Stiefel manifolds, which have been studied by research
mathematicians from several different points of view. In terms
of Research in Undergraduate Institutions (RUI) activities and
the broader impact of the proposal, the principal investigator
plans to continue his successful program of new course
development and mentoring of individual students. Over the past
fifteen years, this has resulted in 13 honors theses and a total
of 25 students in geometry courses, who have attended or plan to
attend graduate school in mathematics or related fields.